Collaborative Research: Planning of a Center for Autonomic Computing

A planning meeting will be held to determine if a multi-university Industry/University Cooperative Research Center for Autonomic Computing will be formed at the University of Florida, Rutgers University, and the University of Arizona. The mission of the proposed center is to advance the knowledge of how to design and engineer systems that are capable of running themselves, adapting their resources and operations to current workloads and anticipating the needs of their users.

The center will not only advance the science of autonomic computing, but will also accelerate its transfer to industry by closely working with partners in the definition of projects to be pursued, and contributing to the education of a workforce capable of designing and deploying autonomic computing systems.